RUI: Homotopy Theory of Commutative Algebras and its Applications

DMS-0206647
James M. Turner

An active area of research in commutative algebra since the
1950s has involved the use of homological methods to
characterize Noetherian rings and the homomorphisms between
them. In the 1960s, simplicial methods were used to enable
homotopy theory to apply to commutative algebras and develop
richer homological techniques. This project seeks to use
homotopy theory to characterize (simplicial) commutative
algebras with a Noetherian property. Part of this effort
will seek to resolve a conjecture of Quillen on the rigidity
of the homology of commutative algebras and draw deeper
connections between simplicial methods and methods from
differential homological algebra. This project will also
study how the cohomology of algebras can serve as host
for obstructions to realizing a topological space from
given algebraic data that functions as the value of a
suitable homotopy invariant of the putative space.
Attention will be paid to developing methods for computing
such obstructions.

Homotopy theory is a method of studying certain mathematical
objects and the relations between them from a global
perspective. In the case of geometric objects, certain
algebraic invariants can be assigned to study and distinguish
between homotopy types. Understanding the properties of these
algebraic structures and how they relate to the geometric
objects they are associated to are therefore important parts
of this theory. This project seeks to further the
understanding of the homotopy theory of geometric objects
from the algebraic perspective. There are two aims to this
project. The first is to develop further the homotopy theory
of algebras that parallels that of geometric objects. The
second aim seeks to make use of the homotopy of algebras
and their various properties to understand the homotopy of
spaces. This would involve studying the extent to which
algebraic structures and properties can be lifted to
corresponding structures and properties for geometric objects.